Cities' Self Study Grant - Mathematics & Science

93-50542 Cohen The self-study/planning grant of the Dade County Public Schools will build upon the Science, Mathematics, Computer Education and Environmental Task Force Report conducted by key Dade County stakeholders. The DCPS will assess student access to mathematics and science programs, teacher qualifications, adequacy of resources, and learning opportunities for students. Task force members will visit schools and review individual school improvement plans. This information will be consolidated with stakeholder data to formulate a comprehensive mathematics and science education reform plan that enhances and refines the Task Force Report. ***